Development of a Computerized Metabolic Map

A currently working prototype system will be extended to develop a computerized view of metabolic reactions that includes viewpoints onto metabolic reactions that are difficult or impossible to achieve with existing textbook or wall-chart representations. The system will include the ability to search enzymatic reactions by chemical groups, provide lists of all potential inhibitory sites of a compound, and graphically output any desired segment of known biochemical pathways. The system will provide varied access paths to information about metabolism by removing artificial limits to thinking imposed by fixed printed implementations currently available. The system is expected to serve the needs of a wide variety of researchers interested in biochemical pathways, as well as providing an educational tool for students at every level of expertise.